IUC: Examination of Hot Carrier Induced FET Degradation in Gate Dielectrics Incorporating Nitrogen

This project will examine the physics of hot carrier induced degradation in an alternative gate dielectric, a silicon oxide-nitride, currently being widely considered. N-channel, silicon gate FETs incorporating various forms of the oxide-nitride gate dielectric would be fabricated, stressed by hot carrier injection, and the device parameters evaluated to assess not only the extent of the charge generation and trapping, but also the nature and characteristics of the charge generated. A modified form of substrate hot electron (SHE) injection will be employed in device stressing, a form permitting independent control of the oxide and accelerating electric fields as well as the injection current level. Current-voltage and capacitance-voltage characteristics will be examined to evaluate the type and quantity of charges generated as well as to evaluate induced changes in device performance.